Human Physiology Laboratory: An Introduction to Scientific Inquiry

This award provides funds to the Department of Zoology at Arizona State University to purchase equipment which will help give freshman/sophomore-level, non-major students a laboratory experience involving scientific inquiry, critical thinking and evaluation skills, and student discovery using non-invasive human physiology experiments as a vehicle. The laboratory will use research-grade analogue recording equipment and transducers as well as computer-matched data acquisition equipment, and computer-based statistical and graphic data analysis software. The analogue equipment will be used for student-designed experiments while the computer-based transducers will be used for more organized laboratory exercises. Throughout the laboratory, emphasis will be placed on development of critical analysis of data, and an increase in general and specific scientific literacy rather than the "canned" experiment-memorization driven laboratory experiences typical of human physiology courses. In addition, the laboratory experience will be designed to give a specific introduction to human body function to include areas of current interest and of current misconception among college-age students.